Theoretical Studies in Gravitation and Astrophysics

The PI will address several problems involving general relativity,
the generation of gravitational radiation, relativistic
hydrodynamics, radiative transport, and stellar dynamics.
A common thread uniting the different theoretical topics
is the crucial role of gravitation, especially relativistic
gravitation as described by Einstein's field equations of
general relativity. Compact objects (black holes and neutron stars)
will provide the principal forum, and the understanding
the dynamics of matter in a strong gravitational field
will be a major theme. Some of the topics that will be
investigated include the inspiral and coalescence of binary
neutron stars and black holes, the generation of gravitational
waves from binaries and other promising astrophysical sources
of gravitational radiation, gravitational collapse, the
stability of rotating neutron stars and supermassive stars
and the final fate of unstable stars, and the formation of
supermassive black holes in the cores of galaxies and quasars.

Most of the topics that will be addressed represent
long-standing, fundamental problems in theoretical
physics requiring large-scale computation for solution.
Hence the approach will involve to a significant degree
large-scale computations on parallel machines,
as well as analytical modeling. Many of the numerical
calculations will be carried out using the computational
resources of the UIUC's National Center for Supercomputing
Applications (NCSA). Utilizing and developing new algorithms
for these computers and visualization tools will help advance
state-of-the art computing in the US. The results of the
calculations will have an important bearing on forthcoming
astronomical observations, including those planned for
gravitational wave interferometers, such as LIGO and LISA.
The theoretical modeling of gravitational waveforms which
will be performed by Shapiro and his group will provide
essential input for the identification of sources of
gravitational radiation by these instruments.